Acquisition of Behavioral Science Laboratory Equipment

Computers, ancillary equipment and software are provided to establish a behavioral science computer laboratory for courses in political science, psychology, and sociology in the Department of Social and Behavioral Sciences. The laboratory provides social science majors, nonscience majors, and future secondary school teachers with hands on experience in the use of microcomputers and exposure to the scientific and technical aspects of the social sciences. Ten microcomputers and associated hardware, disc drives monitors, and four printers, are provided. Software includes a statistical package, data sets covering a wide range of topics in domestic and foreign affairs, and experiments designed for interactive student use. Students apply behavioral science concepts and methodologies to real data sets, become familiar with contemporary statistical packages, manipulate variables in relation to classic experiments, and design their own research projects. The award will be matched by an equal amount from the grantee.